MRSEC: Center for Semiconductor Physics in Nanostructures

The Materials Research Science and Engineering Center (MRSEC) is a partnership between the University of Oklahoma and the University of Arkansas which supports an interdisciplinary research program on semiconductor nanostructure science and applications. The research is carried out in two interdisciplinary research groups, with appropriate seed projects. Within IRG 1 the focus is on the growth and characterization of semiconductor nanostructures. The IRG also includes study of the novel electronic and optical properties and potential device applications. IRG 2 has its focus on interfaces with particular emphasis on the study of narrow gap semiconductors such as based on InAs and InSb. The center is engaged in a number of educational activities from the graduate to the middle school level, including support for workshops for middle and high school science teachers, and support for production of science videos. The Center supports well maintained shared experimental facilities and also supports interactive efforts with industry, National Laboratories and other sectors.

Participants in the Center include 17 senior investigators, 6 postdoctoral associates, 15 graduate students, 3 undergraduates, and 1technician. Professor Matthew B. Johnson directs the MRSEC.